U.S.-Japan Joint Seminar: Alloy Semiconductor Physics and Electronics / Honolulu, Hawaii / May 1988

This award will support the participation of U.S. scientists in a seminar on "Alloy Semiconductor Physics and Electronics," organized jointly by Professor Gerald Stringfellow of the University of Utah and Professor Akio Sasaki of Kyoto University, Japan. United States and Japanese participants will meet in Honolulu, Hawaii during May 1988. The seminar will focus on materials aspects of alloy semiconductors, including the following: the growth process, crystalline microstructure, and the properties and device potential of alloy semiconductors. Semiconductor alloys are among the most important materials for current and future electron devices because they offer a high degree of flexibility for device applications. However, our understanding of the chemical and physical aspects of these materials is primitive. This seminar will provide a forum for the exchange of recent research results and ideas, and thus foster collaborative studies between U.S. and Japanese researchers in this rapidly advancing field of semiconductor alloys.